Computer-Interfaced Equipment for Improving Undergraduate Physiology and Neurobiology Laboratories

This project enables the Biology faculty at Smith College to enhance its laboratory teaching of Physiology and Neurobiology by acquiring new, state-of-the-art instrumentation. The new equipment includes digital storage oscilloscopes which can freeze transient data for examination by students and discussion with their professors; dual channel chart recorders, controllable by computers, to make hard copies of data for analysis; microcomputer-based data acquisition systems (updating an innovative data system originally designed at Smith) to give students in Neurobiology access to improved techniques for studying the nervous system; and stimulators and amplifiers, for use in physiological and neurobiological experiments. With this improved, modern instrumentation, Smith College is continuing its tradition of preparing women for careers in science. The project's Principal Investigator is being encouraged to publish the novel elements of his undertaking so that other institutions may benefit from them.